Analysis and Geometry of Certain Markov Chains and Processes

9802855 Saloff-Coste This research focuses on certain Markov processes that evolve in a geometric environment. The relations between the long time behavior of the process and the geometry are studied. In the context of finite Markov chains, analytic and geometric tools are developed to obtain quantitative results concerning ergodicity. The role of Sobolev type inequalities is investigated. For random walk on finite groups, the relation between the behavior of the walk and the structure of the group is studied. The behavior of random walk on infinite Cayley graphs and its relation with isoperimetric inequalities are investigated. Examples showing exotic behaviors are produced by considering wreath products and studying the Laplace transform of the number of visited points and other related functionals. In the context of Brownian motion on Riemannian manifolds, the investigator will study two-sided global heat kernel bounds on manifolds with ends. This requires hitting time estimates for compact regions and bounds on the Dirichlet heat kernel of unbounded regions. Some problems concerning Gaussian measures on locally compact groups will also be investigated. This research is concerned with basic properties of certain random processes. A familiar yet typical example is the question of how many times a deck of cards must be shuffled to be mixed well. Random processes similar to card shuffling are used in computer programs to perform tasks for which no efficient deterministic algorithm is known. Understanding how well these stochastic algorithms work is important and calls for precise mathematical studies. Different generalizations of card shuffling lead to the study of random processes on different types of mathematical structures. The investigator will study the long time behavior of these processes.